Theoretical Condensed Matter Physics

Theoretical research will be conducted to address problems in condensed matter physics which are concerned with explaining and predicting the physical properties of a variety of interesting materials which are currently subjects for experimental studies and technological promise. The properties of these materials are so unusual that new theoretical approaches and techniques are often required. These will be developed based primarily on the methods of quantum statistical mechanics. Thus research to be carried out has both intrinsic theoretical importance and immediate experimental relevance. The research will have impact on materials science, solid state physics and quantum chemistry. The materials which will be investigated in this project include: new, strongly correlated metallic and magnetic materials; heavy- fermion materials; high temperature superconductors; disordered electronic substances; and, quantum solids and fluids. In all of these subjects, the interactions between the elementary constituents play a fundamental role. The theoretical approach will introduce and elaborate models and methods which deal directly with that central issue. %%%